Aerospace Vehicle Flight Simulator Development

The research centers around the developing of a fixed base flight simulator with an out the window display. The simulator incorporates parallel processing on several Apollo computers. The pilot inputs are read using an analog/digital processing system in a crew station. The simulator output is used to drive cockpit instrumentation and to create graphical imagery. In addition, the flight simulator may be applied in programs under development for determining aerodynamic coefficients and stability derivatives of new configurations. The first part of the research deals with the proper equipment and the second part deals in software development and hardware/software interface. The simulation system differs from existing systems in that each subroutine is to be interchangeable with another from a differnt aircraft type. This interchangeability of various aircraft subsystems allows greater flexibility in the analysis of different configurations. This project is one supported under the Creativity Awards for Undergraduate Engineering Students.